Workshop: Human Rights Law

This proposal will fund a two day workshop to bring together an interdisciplinary group of scholars who study human rights law. The workshop will present and discuss several mechanisms in which human rights law is codified and employed. It is designed to bring together human rights scholars from a variety of disciplines, areas of expertise, and methodological orientations to develop a richer understanding of human rights law.

This workshop will assemble a diverse array of scholars who will consider theoretical and practical applications of human rights law in several contexts. As participants stem from numerous and disparate disciplines, areas of expertise, and methodological orientations, a goal of the workshop will be to develop a more complex understanding of the ways in which human rights law functions in moments of duress. The workshop will facilitate discussions of theoretically based and empirically grounded aspects of the multidisciplinary human rights field.